Global Crustal Model CRUST 1.0 and a Crustal Database

This grant provides support to compile a comprehensive database of
information on the elastic structure of the Earth's crust.
Parameters that will be tabulated include depth to Moho, average
crustal velocities, density, thickness of the sedimentary cover and
Pn velocities. As the database grows, it will provide the necessary
resource for a detailed global crustal model that is defined on a 1
degree grid, CRUST 1.0. This new model will enable the PI to obtain
more detailed and unbiased tomographic images of the Earth's upper
and lower mantle. The necessity to be able to perform such unbiased
studies gain increasing importance as current crustal models fail to
serve as reference model in the upcoming EARTHSCOPE initiative.

The crustal model will be available to other researchers on the
worldwide web, together with the database it is
based upon. This assures the utilization of CRUST 1.0 within a wide
range of disciplines. For example, the model as a whole can be used
as a starting model in other tomographic studies and earthquake
location procedures or as a model to calculate predictions (such as
sediment loading effects, electrical conductivity or isostatic
compensation, regional wave propagation). The database will provide
tables of detailed information that is currently available for local
structure. This will benefit the "fine-scale research" of a
particular area, i.e. for applications that seek information on a
scale smaller than the 100 km of CRUST 1.0. The database will
probably be the most comprehensive global crustal database that is
openly available to other researchers.